Improved Statistical Language Models

9319516 Charniak This is the first-year award of a three-year continuing grant to study the use of probabilities and probabilistic language models in context-free parsing applications. The research consists of four parts: 1) use of probabilities in the syntactic parsing of English through automatic generation of a probabilistic grammar by applying standard statistical techniques to corpora that has been hand- tagged; 2) a portion of the resources in the statistical analysis involves the co-occurrence of words, which improves the effectiveness of the language model thereby helping the determination in the parse that, for example, a noun would be more likely in a certain position than another, rather than just the parts-of-speech results that would be obtained via a classical parser; 3) it is anticipated that some level of semantic generalization may be possible by grouping the words with similar statistics in classes, as statistical parameters are smoothed; and finally, 4) the model obtained and smoothed is rigorously tested through an objective quality measure such as the per-word cross entropy. The goal is to improve upon existing trigram models, currently in use in speech recognition, and to work towards better language understanding systems.